Upgrade of the Collections Facilities of the Harold W. Manter Laboratory of Parasitology

9631295 Gardner This project will upgrade the quality of specimen storage and cataloguing of the Harold W. Manter Laboratory of Parasitology (HWML) of the University of Nebraska State Museum, as well as incorporate several other collections that recently have been donated to HWML. Slides and vials will be repaired and relabelled and vial lids replaced, and the specimens will be transferred into fireproof, climate-controlled cases in a recently expanded collection room. The methods used will be up-to-date, archival techniques that will conserve the collection well into the future. In addition, the several collections will be catalogued in a common, computerized system. The results of this effort will allow HWML staff to provide identification services, research data, and educational information to a wide variety of users, including medical and veterinary clients, researchers at other institutions, and the general public. Support for the project is in partnership between the Research Collections in Systematics & Ecology program of the NSF and the University of Nebraska, which recently funded the renovation of the space and is providing in-kind and monetary matches to the NSF award.